The Mohammed Dahleh Symposium

This symposium will encourage the participation of researchers from a broad range of disciplines, while maintaining a core representation from the areas of Dynamics and Controls. Many of the presentations will focus on new emerging research areas of key significance. These new areas share in common the fact the dynamics and control theory and methods provide the appropriate framework for the understanding of the corresponding phenomena, while at the same time providing many of the tools necessary for their application to relevant technologies. Examples of these opportunities include the areas of systems biology, quantum feedback and control, fluid dynamics, and control applications in nanotechnology. The importance of these emerging areas in the current research agenda in science and technology means that a unique opportunity exists to drastically extend the scope and impact of dynamics and control methods far beyond their traditional areas of application in engineering.